A Multilayer Mirror/Monochromator For Dual-Energy Digital Subtraction Angiography

This is an SBIR Phase I award to explore the feasibility of designing and constructing a multilayer mirror based monochromator to produce monochromatic sources of hard x-rays for dual-energy digital subtraction augiography. The research will culminate in the construction of a broad bandwidth hard x- ray monochromator for dual-energy synchrotron radiation angiography. This technique currently offers the most promising means for low risk non invasive screening for coronary artery disease. The proposed concept has therefore a high potential for commercial applications.